Collaborative Research: The Effects of Information on Firm Conduct and Market Structure (An Analysis of Disclosure Regulation in the Restaurant Industry)

There is a significant theoretical literature in economics that identifies various ways through
which providing more information to consumers may lead to improvements in market effciency
and consumer welfare in particular. The theoretical insights provide a basis for government
policies that seek to increase the amount of information available to consumers. Examples of
such policies include food labeling laws, accounting disclosure rules and energy effciency labels
on home applicances. Meanwhile existing empirical studies into the effects of information to
consumers on firm behavior find small or negligible effects, casting doubt on the importance of
such policies. In this project, we analyze a regulatory change that provides an appealing context
for evaluating the effects of increased product information on firms' product quality choices and
disclosure decisions.
In 1998, Los Angeles County introduced hygiene quality grade cards to be displayed in restaurant
windows. The regulatory change provides an experiment in whether firms are subject to volun-
tary disclosure (of hygiene quality) without verifiability, voluntary disclosure with verifiability
or mandatory disclosure. Our research indicates substantial effects of the increased information
on restaurant hygiene quality. We also find that the effects from mandatory disclosure are very
similar to the effects from voluntary verifiable disclosure. A possible implication of this finding
is that mandatory disclosure laws (which could be hard to introduce due to lobbying by indus-
try groups) are less important than having the government provide mechanisms/procedures for
firms to voluntarily disclose verifiable product information.
The richness of our dataset allows us to also analyze how the effects of the grade cards differ
across restaurants. This is interesting because we can address questions that have received
little or no attention in the existing empirical literature, such as: (i) does reputation help firms
to overcome adverse selection problems, (ii) do franchised chain-restaurants free-ride on chain
reputation, and (iii) what is the effect of the increased product information on firms' profitability
and market structure?